A Graphics and Symbolic Computation Laboratory to Enhance Instruction in Calculus

Students are solving more varied and complex problems and are gaining an increased appreciation for the geometric and numerical aspects of calculus. They are accomplishing this in a computer laboratory equipped with Macintosh computers running Mathematica, a graphics/computer algebra system.